CONFERENCE: UNDERGRADUATE PARTICIPATION IN THE EAST COAST NERVE NET (WOODS HOLE, MA) APRIL 8-10, 1997

The East Coast Nerve Net is a small conference that encourages interaction among graduate students, post-doctoral scientists and faculty in an intensive weekend. The conference utilizes the facilities of the Marine Biological Laboratory in Woods Hole, Massachusetts, an outstanding institution for biological research, which provides an informal setting. The presentations emphasize participation by young scientists who have not yet presented their work at major national or international meetings. This award helps defray participant costs to encourage a few undergraduate students of under-represented groups to present their work in talk or poster form. This conference participation will allow a few outstanding undergraduates to gain experience and information from their peers and mentors that will be important for their career development.